Faculty Workshop on Computer-Aided Instruction in Linear Algebra and Differential Equations

This three-week summer workshop at the University of New Hampshire targets undergraduate mathematics faculty who teach linear algebra or differential equations, but have minimal experience with computer-aided instruction (CAI) in their courses. These faculty seek to enhance their teaching by creating CAI materials, e.g. in- class demonstrations, problem sets, syllabi, and operational procedures, that effectively integrate computer technology into their instructional plans. Morning sessions survey and reinforce specific mathematical concepts, address the development of pedagogical strategies, and examine the design of curriculum materials. Each afternoon, participants work in teams to formulate, produce, and evaluate CAI materials appropriate to their individual courses. Guest visitors supplement these regular activities with talks and discussions on applications and broad pedagogical issues raised by CAI. The major impact of the program is the enhancement of the teaching of differential equations and linear algebra. Effective use of CAI in these subjects can increase the mathematical maturity of students without sacrificing course content. This objective is also with curricular goals in engineering and the physical science.